PYIA: An Expert System Assisted Power Flow Evaluation

This research will look at an expert system approach to enhance a utility system operator's decision selection during scheduling and operation. The researcher intends to explore and implement scenarios of corrective measures that will help alleviate voltage collapse problems and assist in load management and real-time optimal dispatch.